Phase Field Modeling of Crystal Growth Morphologies

9634056 Sekerka This is a renewal grant which will focus on improving and applying the phase field model to obtain a quantitative understanding of the morphologies of growing crystals and in particular those formed by solidification from the melt. Knowledge of such morphologies is of practical importance because it determines the microstructures of materials and, consequently, their properties. Results are also of scientific interest because they shed light on the fundamental physics of pattern formation and the solution of free boundary problems which are at the frontier of applied mathematics. The research is comprised of three parts: (1) cellular shapes and cellular dendritic shapes that occur during directional solidification from alloy melts will be investigated; (2) thermal fluctuations and noise will be added to the phase field model in such a way as to insure that the fluctuation-dissipation theory is satisfied; (3) the phase field model will be generalized to include fluid flow with solidification. %%% This is a renewal grant which will focus on improving and applying the phase field model to obtain a quantitative understanding of the morphologies of growing crystals and in particular those formed by solidification from the melt. Knowledge of such morphologies is of practical importance because it determines the microstructures of materials and, consequently, their properties. Results are also of scientific interest because they shed light on the fundamental physics of pattern formation and the solution of free boundary problems which are at the frontier of applied mathematics. ***